Thematic Workshops for the 2003 Les Houches Summer School on Theoretical Neuroscience

Chow
The investigator and colleagues organize thematic
experimental workshops in conjunction with a summer school on
theoretical methods in neuroscience in France from July 28 -
August 29, 2003. The course covers modern theoretical methods
used in systems neuroscience. It is part of the Les Houches
summer school series, which has a distinguished tradition of
covering leading edge theoretical topics. The course is intended
for graduate students and postdocs who have backgrounds in
physics, mathematics or other quantitative fields. Neuroscience
rapidly changes and it is essential for theorists to be aware of
new experimental results and techniques. Thus, the organizers
hold three Thematic Workshops in conjunction with the theoretical
program. In these workshops, experimentalists give talks on
physiological issues and lead discussions related to the topics
covered in the theoretical lectures.
The impact of this summer school on the students,
theoretical lecturers and experimentalists cannot be overstated.
In addition to the training the students receive they also have
the opportunity to meet and interact with many prominent
neuroscientists. Conversely, the senior participants have an
opportunity to meet the next generation of theorists. In biology
the relationship between theory and experiment is still
tentative. The workshops present topics important in themselves,
they fit well with and amplify and ground the theoretical agenda,
and they provide a remarkable opportunity to establish
connections between theoreticians and experimentalists in an
important and dynamic area of biology. All of the lecturers are
required to write an accompanying paper to be placed in a
published proceedings. These proceedings will have sufficient
detail to be treated like a textbook on modern methods of
theoretical neuroscience and will be a valuable source of
information.